NRT-HDR: Bridges in Digital Health

Proposal ID: 2125872
Proposal Title: NRT-HDR: Bridges in Digital Health
PI: Donald Adjeroh
Institution: West Virginia University

Public Abstract
The rapidly increasing cost of healthcare represents one of the most pressing problems facing the United States and most other countries around the world. At the same time, increased life expectancy has resulted in a significant expansion of the nation’s elderly population. The combination of rising health care costs and increased life spans poses tough challenges for many families. The widespread disruptions caused by the COVID-19 pandemic have exacerbated these national challenges and health disparities, particularly in rural communities with poor health rankings. These problems could be addressed by new advances in digital health (DH) and how we train the next generation of scientists, engineers, and healthcare professionals to develop and deploy such advances. This National Science Foundation Research Traineeship award to West Virginia University (WVU) will address these challenges by developing a new graduate education and traineeship model to prepare professionals who can work in collaborative transdisciplinary teams to develop and apply data science and artificial intelligence (AI) techniques in addressing difficult problems in DH, including in rural areas. The project anticipates training twenty-four (24) funded and forty (40) unfunded MS and PhD students from different backgrounds, including engineering, computer science, medicine, health sciences, physical sciences, and economics.

Data science and AI techniques have been successfully applied to address a diverse range of health problems. The traineeship will address how to scale and build on DH successes by developing: 1) effective and transferable frameworks for training a larger and more diverse workforce with the foundations underlying these advances while inculcating soft skills beyond traditional coursework and ensuring rural communities are served; and 2) new ways to address other problems in DH related to the nature of DH data, the significant data analysis gap, and computational problems. A key element in the traineeship is its specific attention to the “bridges” required for effective and scalable traineeship and workforce development in DH. These bridges will connect: (a) different fields within health sciences, and across other areas, including barriers posed by the distinct terminologies used by different fields; (b) different scales of study in biomedicine (from micro to macro) via integration of different data types; and (c) underrepresented groups and innovative research in DH to ensure diversity in the traineeship. This diversity will be achieved by: 1) recruiting and supporting success for participants from Historically Black Colleges and Universities, those who are rural, those from the first generation in their families to go to college, and/or those from other groups underserved in STEM, and 2) by bridging Primarily Undergraduate Institutions and large research institutions. Trainees will develop novel approaches to tackle some of the core problems in AI (e.g., trust and safe decision making, scalable data structures, and attention-based information integration). Trainees will apply these approaches to specific problems in health, such as myocardial fingerprinting from echocardiograms and large-scale functional annotation in genomics. The project uses an innovative sequence of components to interweave the research theme, important professional skills (e.g., communication, ethics, leadership, collaboration), and coursework into the traineeship model without extending time-to-degree. Upon completion, trainees will be awarded a Certificate in DH. The traineeship will also form a basis for a new, transdisciplinary PhD program in DH at WVU.

The NSF Research Traineeship (NRT) Program is designed to encourage the development and implementation of bold, new potentially transformative models for STEM graduate education training. The program is dedicated to effective training of STEM graduate students in high priority interdisciplinary or convergent research areas through comprehensive traineeship models that are innovative, evidence-based, and aligned with changing workforce and research needs. This project is jointly funded by the NRT program and the Established Program to Stimulate Competitive Research (EPSCoR).